Mathematical Sciences: Nonlinear Problems of Solid Mechanics

The principal investigator will study rods, shells and solid bodies composed of various elastic, plastic and viscous materials using geometrically exact theories for nonlinear constitutive equations, in order to treat new nonlinear effects, thresholds and instabilities. He will study also dissipative mechanisms in solid materials such as shock waves and contact discontinuities. Two-and three-dimensional solid bodies are complicated objects to study when they are composed of elastic or plastic material. The reason is that such objects often behave counter- intuitively when subjected to loading or stress. In order to help understand these materials and predict their responses to applied forces it is important to have mathematical models that are realistic and at the same time amenable to solution. This proposal will formulate several such models and attempt to find meaningful solutions.